Ship Operations for the R/V F.G. Walton Smith

Ship operations play a vital role at the University of Miami's Rosenstiel School of Marine and Atmospheric Science (RSMAS) with respect to the School's outreach and education missions. The School is committed to improving scientific and environmental literary among students and adults regionally, nationally, and internationally. RSMAS owns and operates R/V F. G. Walton Smith, an aluminum hull catamaran. The vessel has been service since December, 2000, and has performed will in supporting a variety of marine scientific missions. She has the unique capability of operating in shallow coastal waters which are inaccessible to deeper draft vessels, and as such represents an important asset in the Academic Research Fleet.